AF: Student Travel to STOC 2009

This award will help to help support student attendance at the ACM Annual Symposium on the Theory of Computing (STOC) in Bethesda, Maryland, May 31 through June 2, 2009. STOC and its sister conference, the IEEE FOCS meeting, are the premier broad-based conferences on the Theory of Computing in North America. In recent years the attendance at STOC has been roughly 275 plus or minus 25. 40% or more of the attendees have been students, for whom the conference serves as a valuable educational experience, both as regards the technical content of the talks and the opportunities for networking that it provides. This award will provide partial support to as many as thirty student attendees, covering registration fees, shared hotel rooms, and travel.